Graphic Access New Technology (GANT)

9360754 Morford The Microsoft Windows NT (New Technology) Operating System will be released in the second half of 1993, and is totally inaccessible to visually impaired students and business professionals. This operating system will be in many colleges and universities for science and mathematics courses and will severely hinder the educational and career opportunities for visually impaired people. The goal of the Graphic Access New Technology (GANT) project is to make Windows NT accessible to visually impaired persons. Automated Functions, Inc. (AFI) will design and develop software that will accurately map the two dimensional Windows NT graphic display to the one dimensional medium of speech. GANT will use a innovative multiple task approach which uses artificial intelligence pattern matching technology to accurately convert the graphic pattern to text character. AFI is expert in the design and development of adaptive aids to assist visually impaired people. The GANT team is familiar with graphic based operating systems and understands the needs of persons with visual impairments. A successful GANT system will enable visually impaired people to use the same Windows NT System as their sighted peers, enabling access to mathematics and science related courses and professions without any sighted assistance. ***